Purchase of Workstation Cluster For Computational Chemistry

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Arizona in the purchase of a cluster of IBM workstations. This equipment will enhance research in a number of areas including the following: theoretical chemistry, NMR, crystallography and molecular modeling. %%% A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-or-the-art applications of parallel processing.